Industry Internship: Internship Knowledge Based Schedule Development

The objective of this industry internship project is to develop a computer based communication system to improve the integration and performance of product release and scheduling operations in electronics manufacturing. The internship will be carried out in collaboration with Universal Instruments. A knowledge based approach will be used to develop the initial prototype.